Expert Systems Technology as a Tool in the Development of New Rules and Heuristics

This project will establish at New Mexico Highlands University a research experiences for undergraduates site during the 1990 academic year. Most of the students recruited will be of Hispanic origins and will come from the NMHU campus. The proposed research will explore the use of expert systems technology to determine which bones in scattered or mixed skeletons belong to a particular individual. The research will focus on the development of a knowledge database, the discovery of rules and heuristics useful for bone discrimination, and the representation of bone knowledge for computer manipulation.